Development of An Inexpensive Robotics, CAM, AI and Vision Laboratory Suitable for Wide Dissemination

This project seeks to create a disseminable, multi-functional, inexpensive and well-documented laboratory course sequence, with the primary goal of improving practical skills of undergraduate students specializing in robotics, vision, AI and manufactoring disciplines. The project will include the building of a robot, as well as supporting simulation and real-time software and hardware, and it will develop comprehensive laboratory manuals to support an undergraduate sequence of courses in robotics, AI and vision. The laboratory will be transportable.